ROW: Characterizing the Late Paleozoic Proto-Pacific Marginof Northwestern North America

This ROW planning grant will conduct a program of research in the Dorsey terrane of northern British Columbia, which may contain a record of the nature of distal continental margin tectonism in the late Paleozoic, and the initiation of Cordilleran accretion.